Third International Workshop on Ordered Intermetallic Alloys and Composites; Hangzhou, China; April 5-10, 1998

9714853 Sass The objective of this international workshop is a provide a forum for material scientists, and engineers from various countries to participate in an in-depth discussion of recent advances and critical issues for the structural use of ordered intermetallic alloys and composites. The structural uses of intermetallic alloys suffer a major drawback: most are brittle at ambient temperatures. This poor ductility and toughness restricts the use of intermetallics as critical components in industrial systems. For the past 10 years, substantial efforts have been devoted to this class of structural materials, and, as a result, significant progress has been made in improving the tensile ductility and fracture resistance of nickel, iron, and titanium aluminides. The objective of this workshop is a provide a forum for experts from various countries to discuss (1) fundamental variables controlling deformation and fracture of ordered intermetallics at ambient and elevated temperatures; (2) the design of ductile intermetallic alloys for structural uses; (3) further improvements in low- temperature toughness and high-temperature strength by a composite approach; and (4) the processing of intermetallic alloys and composites by both conventional and innovative methods. This international workshop is co-organized by Prof. Dongliang Lin (host) from Shanghai Jiao Tong University, Dr. C. T. Liu from Oak Ridge National Laboratory, and Prof. Stephen L. Sass from Cornell University. It is held in Hangzhou, China, from April 5-10, 1998. Participation in this workshop is by invitation only. The proceedings of this workshop is tentatively planned to be published in the Journal of Materials Science and Technology. It is expected to have 25-30 scientists from outside China and 25-30 scientists from China. %%% Ordered intermetallics based on aluminides and silicides possess many attractive properties for high-temperature structural use. In general, these intermetallic s show excellent strength at elevated temperatures. Many intermetallic alloys exhibit an increase in strength with temperature rather than a decrease as in conventional materials. Aluminides and silicides are extremely resistant to oxidation and corrosion at elevated temperatures in hostile environments. In addition, these intermetallic alloys have a density lower than that of steels and superalloys by as much as 40%, thus making the intermetallics ideal for fabricating moving parts in advanced heat engines, gas turbines and other energy conversion systems. ***